Stochastic Interpolation of Precipitation Data from MultipleSensors

This research will investigate the feasibility of utilizing stochastic interpolation techniques for merging precipitation data from three sensors: rain gauges, radars, and satellites. Linear and nonlinear interpolators for stationary and nonstationary spatial processes will be studied. The interpolation techniques will include universal and disjunctive kriging. Emphasis will be given to comparing the new techniques with the methods currently in use. The comparison will be carried out using synthetic spatial precipitation data. The results of this study are expected to have implications for flood hazard mitigation.